A Cognitive Theory of Cooperators' Advantage

This proposal offers new insights into the sources of cooperative behavior in small-group situations involving prisoners' dilemma games. Previous analyses have explained the behavior either by assuming supplementary incentives or by assuming that cooperators are capable of recognizing defectors. Both approaches place substantial demands on human cognitive capacities that appear unreasonable. The present approach, in contrast, is based on an alternative heuristic involving two decisions: (1) whether to participate, and if so, (2) how to participate. This approach provides a basis for studying the evolution of cooperative behavior. The ideas will be tested using a new experimental paradigm that holds particular promise. The proposed approach offers advances both theoretically and empirically. In particular, the results of this research will define conditions under which cooperative behavior tends to breed cooperation. Because the focus is on cooperation rather than competition, the proposed research should provide new understanding of small-group behavior.